CAREER: Contingent Static Analysis for Dynamically Composed Systems

This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).

Pervasive societal use of information systems has increased the need
for software to be both reliable and extensible. One technique that
can be used to improve software reliability is the application of
static analyses to discover and validate that properties hold across
all program executions. Unfortunately, additional challenges arise when
applying static analyses to programs that can be dynamically extended,
such as is the case, for example, with Firefox plugins, Microsoft Office
Add-Ins, and Eclipse plugins. This project will develop techniques
for contingent static analysis that will be able to more precisely and
efficiently analyze dynamically extensible software systems.

Specifically, this project will explore techniques for accommodating
dynamic composition during interprocedural program analysis using a
runtime mechanism to efficiently avoid making overly conservative
approximations. Analysis results will be expressed as contingent
properties of different program regions, where the validity of each
contingent property depends explicitly on the validity of properties
from other program regions. The runtime mechanism will then validate
and invalidate these contingent properties as new code is dynamically
loaded into the execution environment. This approach will be applied
to develop contingent escape and information flow analyses.